Organization Science Winter Conference: Exploring the Frontiers of Strategic Decision Making and Management in Chaotic Environments

This project orients the practitioners within the Decision, Risk, and Management Science (DRMS)
and the Innovation and Organizational Change (IOC) research communitites to the
emerging developments critical to strategic management, organizational
design, and decision making in today's
turbulent organizational environment. In its fifth year, the
Organization Science Winter Conference (OSWC -- a 50 person "think tank"
style conference) has resulted in the identification of new research
agendas through interdisciplinary approaches. The conference has become
known for engaging leading theoretical ideas, as well as a way for
research to be informed by practicing managers.

The 1999 OSWC topic is "Negotiating the Shoals of Chaotic Environments."
Both the academic and popular press suggest that organizational
strategies and forms whose roots originate in the Industrial Age may no
longer be appropriate as we transition into a new era --
Post-Industrial, Knowledge-based. The pace of the resulting competitive
landscape has clearly increased, but even more important has been the
rise in volatility and environmental uncertainty. Many believe that the
organizational playing field has moved from a complex but predictable
environment, to a field more aptly described as chaotic. If this is the
case, then current knowledge in strategic and organizational theory is
out of date. The challenge facing the DRMS and IOC community and
practitioners involves the development of new theories, models and
methodologies more appropriate for chaotic uncertainty.
At this year's conference we anticipate explorations of the theme from a
wide spectrum of perspectives--strategy, decision making, managerial
and organization cognition, leadership, organization learning,
complexity theory and chaos, information technology, knowledge and
knowing, ecology, political economy, etc. Specific topics likely to be
included are quantifying and measuring chaotic environments, strategic
responses and organizational forms for turbulent situations, and
managerial implications.

The grant provides funding for two new conference initiatives:
(1) sponsorship for one leading scholar from Europe and one from Asia who
would otherwise not be able to attend, and (2) support related to the
development and writing of a 'perspective' paper to be published in
Organization Science.